EuroLink: High Performance International Internet Services between Research and Education Institutions in the United States and Europe/Israel

This award to the University of Illinois at Chicago, (UIC) entitled"EuroLink: High Performance International Internet Services between Research and Education Institutions in the United States and Europe/Israel" provides support for a High Performance International Internet Services connection between the advanced networks of the Nordic countries (Denmark, Finland, Iceland, Norway and Sweden), France, Netherlands, Israel and NSF's very high-performance Backbone Network Services (vBNS). The overall consortium (European networks plus UIC) is called EuroLink. EuroLink proposed to provide four links, each nominally at 45 Mbps, between the European NRNs and the vBNS via the NSF-funded international connection point for high-performance networks, STAR TAP , in Chicago. It is anticipated that other European countries may join EuroLink in the future. Round-the-clock operational support will be provided under subcontract to the Indiana University Network Operations Center (NOC). The Indiana NOC also serves under a companion HPIIS award to TransPAC for Asia-Pacific collaborations, and it also provides operational support to the Internet2/Abilene network.